III: Small: Towards Scalable and Comprehensive Uncertain Data Management

Due to the importance of uncertain data for a large number of applications,
there has been significant recent interest in database support for uncertain
data. Existing work in this area includes new models for uncertain data,
prototype implementations, and efficient query processing algorithms for
specific types of queries. Despite the recent efforts, several important aspects
of uncertain data management remain unexplored. This project addresses two
of these areas: Query Optimization and Support for Non-Relational Operators.

The first goal is about efficient execution of uncertain data queries. As with
traditional data, efficient execution is necessary for ensuring the viability of
uncertain data management systems. However, due to the complications of
ensuring correct results, and the need for CPU-intensive operations over
probability distributions, the goal is critical and challenging. In this project,
automatic query optimizations are developed, through query rewriting rules
that involve probability threshold operators, corresponding access methods,
and cost estimation functions.

The difficulty of handling uncertainty when dealing with non-relational
operators has been expressed in many domains. The project aims to
advance the capability of tracking the exact impact of uncertain inputs as
data is processed by arbitrary programs, leveraging advanced techniques
from the area of program analysis. A key problem with traditional Monte
Carlo based solutions lies in correctly identifying independence in the output
of Monte Carlo simulations. Data lineage tracing, which identifies the set of
inputs used to compute an output value, is used to address the challenge.
Furthermore, a program dependence tracing based approach is devised to
trace the propagation of uncertainty during execution of arbitrary binary
code. The technique does not rely on Monte Carlo simulations, and does
not require access to source code or domain knowledge.

For further information see the project web page:
http://www.cs.purdue.edu/homes/sunil/uncertainty